Upgrade of a Computer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at the University of Colorado--Boulder in the purchase of a IBM RS 6000/590 computer. This equipment will enhance research in a number of areas including the following: Studies of the reactions of ions with neutral molecules in the gas phase; Ab initio electronic structure calculations; and Biradical-like Reactive Intermediates. A workstation network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-the-art graphics and visualization facilities and supports research in state-of-the-art applications of parallel processing.